An Optimal Time Stepping Method for Computational Science Applications

The focus of this proposal is on the mathematical analysis and efficient
implementation of a new class of Krylov deferred correction accelerated
"method of lines transpose" for time dependent PDE's. The method first
discretizes the temporal direction using Gaussian type nodes and spectral
integration, and the resulting coupled elliptic equations are preconditioned
using deferred corrections, in which each correction procedure only
requires the solution of a decoupled system using available fast elliptic
equation solvers. The preconditioned nonlinear system is then solved
efficiently using iterative Newton-Krylov techniques. Preliminary numerical
experiments show that this method is unconditionally stable, very efficient,
and can achieve arbitrary order of accuracy in both time and space. In
particular, no CFL constraints have been observed and the time step size
only depends on the smoothness of the solution and hence is "optimal".
Highlights of the PI's preliminary results include (a) a time domain
Maxwell equation solver which provides accurate results for a long-time
electromagnetic wave simulation problem for which most existing time
integration schemes fail; and (b) a symplectic Schrodinger equation solver
which preserves the structure of a Hamiltonian system with singular
potential while most existing numerical techniques quickly blow up.

It is well known that inaccurate numerical algorithms have caused many
costly project failures, examples include the sinking of the Sleipner A
offshore platform in Gandsfjorden near Stavanger, Norway, on August
23, 1991, which was due to inaccurate finite element analysis and resulted
in a loss of nearly one billion dollars. The purpose of this proposal is to
use advanced mathematical analysis and develop numerical techniques that
can efficiently provide accurate and stable numerical simulation results
to important science and engineering problems. In particular, the PI
will study and implement a novel class of numerical algorithms for
time dependent problems modeled by partial differential equations.
The success of this project will bring new tools and techniques to a
wide class of applications in science and engineering that are impossible
to solve efficiently and accurately using existing techniques, examples
including the design of optimal drug structures in biochemistry, the study
of cosmos structure in astrophysics, and improved understanding of the
physics that govern hydrologic processes in Earth system science.
This project also focuses on the training of a new generation of scientists
capable of developing advanced numerical tools using sophisticated
mathematical theory.